Conference in Dusty Plasmas; Seattle, Washington

This award is for participants to attend and deliver lectures at the "Dusty Plasma Mini Conference" to be held in conjunction with the American Physical Society (APS), Division of Plasma Physics Annual Meeting in Seattle, Washington, 14-19 November 1999. Dusty Plasmas play an important role in the aeronomy of the lower ionosphere. For example, the formation of noctilucent clouds and its role in determining the dynamics of the D region is an outstanding problem of significant interest. There are a number of other important applications of dusty plasmas as well. It is a rapidly growing interdisciplinary science with a promising future. The American Physical Society will provide funding to key invited speakers, who would otherwise be unable to attend the meeting due to lack of funds. The participation of these speakers is necessary to maintain a high quality of scientific content for this conference.